Private Sector Partnership to Improve Science and MathematicEducation in West Irondequoit Schools

The West Irondequoit Central School District of Rochester, New York is conducting a Private Sector Partnership project to Improve Science and Mathematics Education in West Irondequoit Schools. The project aims to motivate junior and senior high school students to choose technical careers in industry and manufacturing. The initial target group is 500 seventh and eighth grade students; 30% of these students are minority, 50% are female,and 12% are handicapped. They are introduced to technology education through the Manufacturing Technology Awareness Module (TAM). TAM will allow the students to explore such concepts as CAD/CAM, use of robots in industry, applications of computers, and creative problem solving. Students will be impressed with the necessity of integrated study of math, science, and technology for solving technical problems.